Developing and Evolving VLSI Neuromorphic Systems for Visually Guided Behavior

9315879 Elias This award will fund a project to generate artificial neuronal systems using a VLSI technique for processing visual information. The neuronal network will be composed of electronic neurons, each with dendritic trees, impulse generating soma, axonal arborizations and synapses. Pulsatile signaling will occur between neurons. A genetic algorithm will be used to modify the interconnections between the neurons. The analysis of the evolved neuronal microcircuits are expected to uncover mechanisms of visual motion processing and suggest methods of developing artificial neuronal visual processing systems. This proposal was submitted to the Biosystems Analysis and Control Initiative which encouraged the submission of proposals that through the study of neurophysiological systems could advance engineering science and advance the knowledge of biological systems through the use of engineering analysis techniques. The research being funded by this award has the potential to advance both neurophysiological sciences and the field of engineering in the area of visual motion processing. ***